Some Problems in Equivariant Geometry & Representation Theory

9401018 Lunts Professor Lunts will work on problems in the foundations of representation theory and algebraic geometry. In particular he will continue his study of the equivariant derived category of sheaves with a view to applications in equivariant geometry and representation theory. This is research in the field of algebraic geometry. Algebraic geometry itself is one of the oldest parts of modern mathematics, but one which has had a revolutionary flowering in the past quarter-century. In its origin, it treated figures that could be defined in the plane by the simplest equations, namely polynomials. Nowadays the field makes use of methods not only from algebra, but from analysis and topology, and conversely is finding application in those fields as well as in physics, theoretical computer science, and robotics.